Mathematical Sciences: Nonlinear and Multivariate Time Series Analyses

The project will develop and extend the Scalar Component Model approach to time series analysis. This method is particularly valuable in time series in which there is considerable variability. Investigation will be carried out on nonlinear time series. The investigation may throw some light on the connection between the threshold models and chaos.